Doctoral Dissertation Research: Asian Americans and Electoral Politics

SES-1029669
PI: Michael Omi
Co-PI: Naomi Hsu
Institution: University of California, Berkeley

This research examines the factors that contribute to the voting gap between socioeconomically comparable Asian and white citizens, focusing on the effects of local-level political context. The project will investigate whether California counties with more extensive voter registration and education resources and efforts, and those with greater presence of Asian Americans in elected office, have lower levels of Asian American under-voting. Findings from this study will be used to incorporate a political contextual perspective into theories of assimilation and political participation in the U.S.

Broader Impacts:
The project has the potential to enhance democratic participation in the U.S. by providing insight on how to improve levels of voting among Asian Americans who comprise one of the fastest-growing segments of the American population.